1996 National Engineering Faculty Forum: An Interactive Teleconference Series to Share Best Practices in Undergraduate Engineering Education

A monthly series of interactive satellite teleconferences is delivered to faculty who teach undergraduate engineering students. Each telecast features an innovative "best practice" which can be adopted/adapted by participants. The 1996 DUE National Engineering Faculty Forum builds on a successful first year of eight teleconferences which focused on undergraduate engineering education. A total of 1299 colleges and universities and 8,932 individuals participated in the first six of the 1995 series, the average number of institutions was 157 with a reported average attendance of 1,489 per seminar. The use of the WWW and Internet to support the Faculty Forum Series has grown significantly. The Web server now contains advance information describing upcoming seminars as well as retrospective data to enable faculty to order videotapes of prior seminars. Presenters solicit input via e-mail prior to broadcast and encourage electronic dialog after their presentation. In 1996, NTU is building on this broad acceptance to provide for electronic registration. FAX transmission and on-line evaluation. The campaign to encourage attendance by instructors at transfer institutions and community colleges is increasing. NTU works with the NSF/DUE Program Directors to identify topics and presenters. NTU is producing, marketing, delivering and evaluating seven one-hour, interactive teleconferences in 1996, which are provided to faculty participants without charge. A license to copy and reuse videotapes of the Teleconferences as well as the printed material provided to each registered college/university is integral to this cost-effective project.